BEST: Benguela Current Sources and Transport

9401950 Gordon In this project, the PIs will analyze, interpret, and publish an extensive data set from the BEST (BEnguela Current Sources and Transport) Experiment. Data from a moored array of current meters and Inverted Echo Sounders (some with pressure sensors), and a CTD (Conductivity-Temperature-Depth) survey will be used to study the transport of Indian Ocean water into the Atlantic, and its mixing processes, particularly the formation and transport of eddies. ***